Phase Transformations in Mantle Minerals

This grant is for support of research focused on projects to study the properties and processes associated with pressure dependence of the elastic properties of high-pressure phases. These experiments will be performed using existing analytical facilities in the Mineral Physics Institute and the large-volume, high pressure facilities of the Stony Brook High Pressure Laboratory.